Probabilistic Methods in Dynamic Environments

We propose research on Bayesian representation and inference methods in AI, focused especially on decision-making in dynamic environments. Dynamic environments provide both an opportunity and a challenge to intelligent systems research: the flexibility required to perform well in such environments will most likely demand AI methods, but AI research traditionally has focused on more static environments. The proposed research builds on our current research on inference in Bayes nets, and focuses on real- time inference and dynamic representation construction. The results will contribute to our understanding of the problems of and potential for decision-theoretic techniques in dynamic environments, and will provide a decision-theoretic foundation for complex real-time monitoring, assessment, and control applications.